Summer Institute in Environmental Science

This project will improve the knowledge and teaching background of teachers. The program will provide 90 hours of instruction in environmental science and ecology. Five environmental concepts will be explored during the 24-day period. Each week's instruction will include guest lectures, hands-on workshops, field trips, and interviews with community leaders. The course will meet daily throughout the month of July. Participants will be required to submit a group project as part of the Summer Program. The results of the activity will be presented to all participants of the program. Participants will be K-12 teachers from the St. Louis metropolitan area. A minimum of three years teaching experience is required. Participants must have approval from their supervisory or principal to attend and release time for a post-institute day.